ROW: Stressor Controllability and Immunocompetence

It has long been recognized that there is a relationship between stressful life events and disease. For example, grief and bereavement appear to be associated with increased morbidity and mortality among the survivors. Depression, which often follows a loss or a separation is associated with a twofold increase in risk of cancer over a 17-year follow-up period. Similar, significant correlations, although retrospective, exist between stressful life events and the incidence or onset of major medical disorders, including AIDS. Given such correlations, it becomes important to examine what impact stress has on immune function. Dr. Linda Watkins will focus her research efforts on two inter- related questions which, taken together, should shed light on the underlying bases of immune responses to stress. First, a systematic examination will be performed to clearly define the temporal window within which exposure to stress can alter the immunologic response to antigenic challenge. Second, studies will be done aimed at defining mechanisms which allow these changes in immune function to occur. Standard plasma and tissue assays will be used.